Mathematical Sciences: Sensitivity of Solutions to the Problem of Locating Hub Facilities

The problem of hub location can be viewed as a nonconvex optimization problem which has parallels in other applications as well. Here, the critical input parameters may be dynamic, so this work will consider sensitivity analysis for heuristic solutions. This award supports the cross-disciplinary efforts and the development of a research collaboration involving quantitative modelling in the geosciences. In particular the mathematicians and the geographer will focus their attention on the development of new optimization algorithms for the problem of assigning hub facilities when these are restricted to specific available locations and when the flow of activity from one point or node to another is known or can be modelled mathematically.